Carborane Chemistry

Professor Onak of California State Los Angeles University will conduct studies of carborane chemistry with funding from the Inorganic, Bioinorganic, and Organometallic Program; the award is made through the Research in Undergraduate Institutions program of NSF. The research to be conducted focuses on the reactivity of carboranes. Specifically, experiments will be conducted to probe the partial cage opening of closo-C2B6H8 and other carboranes with hydride ion, amines, and fluoride ion. Carborane rearrangements and equilibria among carboranes will also be explored, as will cage growth and insertions. 2D NMR and IGLO calculations will be prominent among the methodologies to be used. %%% Chemical research will be conducted on the reactivity of molecules that are based on cage-shaped clusters of carbon and boron atoms. These molecules place the carbon atoms in extraordinary environments in which they can be bonded to as many as 6 other atoms. Experiments will be conducted to discover, assess, and develop methods to "open" the cages, to alter the arrangement of the atoms within the cages, and to increase the number of atoms that constitute the cages. This fundamental research will lead to general insights regarding the chemistry of cage-type molecules.